Eliminating Flow Induced Birefringence and Minimizing Thermally Induced Residual Stresses in Injection Molded Parts

Residual stresses are the main cause of unwanted warpage observed in injection molded parts. The objective of this research is to develop new technology for eliminating flow induced birefringence and minimizing thermally induced stresses due to cooling. This objective will be accomplished by rapidly heating the mold surface so that the melt can fill the cavity isothermally and yet be processed within the normal injection molding cycle time. The outcome of this research could eliminate the flow induced stresses in injection molded parts. The inverse design optimization technique is very promising technique to obtain an optimally prescribed temporal profile of the mold surface temperature and provide better knowledge about the residual stress. This project will greatly enhance applications in molding high-precision parts requiring absolute dimensional stability. The results of these studies are expected to ultimately lead to the development of an innovative cost-effective method of producing injection molded parts.